Grant for Exploratory Research: Very Large Magnetic Field Gradients for Diffusion Ordered NMR by Means of Sample Shuttling

9318655 Johnson In this project of the Physical Chemistry Program of the Chemistry Division, Prof. C. S. Johnson of the University of North Carolina proposes to develop an improvement in current NMR technique to allow the study of ultra slow translational (diffusional) motions of molecules and molecular aggregates in condensed media. An existing standard commercial NMR spectrometer will be modified to allow the use of large magnetic field gradients and high resolution NMR in the same experiment. This project is exploratory in nature and is supported through a Small Grant for Exploratory Research (SGER). %%% The limitations of present methods of Nuclear Magnetic Resonance (NMR) spectroscopy make for difficulties in studying the transport of large micelles and vesicles, restricted diffusion in cells and porous solids, and the simultaneous measurement of diffusion rates of various size probe particles in tight gels and polymers. The exploratory research to be undertaken in this project seeks to overcome these limitations through the combination of several new techniques and adapting them for inclusion in a standard commercial spectrometer. The successful execution of this plan will bring about a major advance of the NMR technique and will have important consequences and great benefits to several applied areas, such as polymer chemistry, biochemistry, and the dynamics of glassy materials. ***